Dissertation Research: Postclassic Craft Production in Morelos, Mexico

Drennan Under the direction of Dr. Robert Drennan, Ms. Ruth Fauman- Fichman will collect data for her doctoral dissertation. She will conduct laboratory work both in Mexico and in Albany NY to analyze archaeological materials collected from sites in Morelos, Mexico. These sites, occupied between 1150-1519 AD document the span of time during which local groups were incorporated into the Aztec empire. Ms. Fauman-Fichman will focus on materials related to the spinning industry and the production of cotton thread. She will analyze architectural information from excavated houses in both urban and rural contexts; associated ceramics; artifacts associated with women's activities such as mazie grinding equipment, cooking pots, griddles and objects related to spinning, weaving and embroidering. The will incorporate this information with the architectural data to reconstruct activity patterns and how these changed over time. The project also has an experimental component and the function of spindles and related artifacts will be determined. Although this project focusses on one specific industry, the goal of the work is to understand how production changes in varying political conditions. With incorporation of Morelos into the Aztec empire, the political situation in the region underwent major alteration and local groups were forced to work to provide tribute. Cotton constituted an important prehistoric good and demands were met in this form. In technologically simple societies, much production takes place on the household level and Ms. Fauman-Fichman wishes to understand how these basic societal units were impacted by and responded to these changes. This research is important for several reasons. It will provide new insight into a period of great interest to archaeologists. It will shed new light on how, over time, basic units of society adapt and will assist in training a promising young scientist.